REU Site: Undergraduate Research Integrating Computation and Experiment to Create Revolutionary Materials

NON-TECHNICAL DESCRIPTION: This Research Experiences for Undergraduates (REU) site is focused on training the next generation of scientists and engineers with expertise at the intersection of materials science and data analytics. With the goal of providing cutting-edge research to students with limited research opportunities at their home institutions, students are actively recruited from community colleges and primarily undergraduate institutions. Training is occurring through formal instruction, hands-on research, site visits to data-intensive local laboratories and businesses, and preparing and delivering public presentations of research results. The research projects focus on developing transformative structural and electronic materials that enable new technologies and applications.

TECHNICAL DETAILS: The REU site addresses the NSF Big Idea concerning “Harnessing the Data Revolution” within the context of structural and electronic materials. Students are gaining experience in the generation, curation, and analysis of very large materials science data-sets. Across the structural and electronic materials space research projects are quite diverse, ranging from weldability of high entropy alloys to data-driven additive manufacturing to piezoelectric and thermoelectric material discovery. The research projects are inherently interdisciplinary, involving pairs of faculty members from different departments and their affiliated graduate students. Many of these projects involve strong collaborations with national laboratory and associated user facilities or industry partners. Beyond technical skills development, significant effort is devoted to enhancing students’ professional skills and self-identity as a scientist. Together, these training objectives culminate in the final week with preparing a poster and associated presentation for a national conference.